ITR/SY: Neutral Atom Cavity QED Quantum Logic

Studies will focus on quantum information processing in the simple system of one or two trapped atoms in a high-finesse optical cavity, generating sets of quantum entanglements (in atom-photon, atom-photon, and photon-photon entangled pairs). Advances in optical atom trapping and cavity QED technologies will be needed. Alternative strategies for storing and manipulating quantum information will be explored.